Dynamics, Geometry, and Operator Algebras

Abstract
Kerr

The program set forth in the proposal involves a nexus of
problems aimed at deepening and broadening both recently discovered
and well established connections between dynamics, metric
geometry, and functional analysis. The theory of C*-algebras will provide
the basic reference point and meeting ground for the various components.
One of the main objectives is to push forward the
development of an abstract theory of C*-dynamics which, in the spirit of
topological dynamics, sees as its primary object of study the long-term
behavior of systems as captured by properties like entropy and mixing.
This project will be pursued by building on links to the
local theory of Banach spaces and making novel use of the perturbation
techniques of C*-algebra classification theory, with a view towards
applications in noncommutative metric and differential geometry,
C*-algebra structure and representation theory, and operator space
geometry.

One way in which the notion of chaos manifests itself is through the
unpredictability exhibited by many complex systems as they
evolve with time. This unpredictability can be made mathematically precise
in several distinct ways depending on the exact kind of behavior one wants
to emphasize, such as mixing or sensitivity to initial conditions. Determining
the relationships between the various phenomena encompassed
by and related to the term chaos, including most notably entropy,
is a major ongoing project in the theory of dynamical systems, and has
practical interest for example in the effort to gauge the accuracy of
computer simulations.
While there exists a vast array of results for the type of
systems which are used to model classical physics, the theory is much less
developed for quantum systems as described mathematically by operator algebras.
The broad aim of the proposal is to open up new perspectives on long-term
behavior in quantum dynamics and at the same time to shed new light
on classical dynamical phenomena by means of functional-analytic tools.